Acquisition of CCD Detector System

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at Purdue University in acquiring a CCD Detector System. This equipment will enhance research in a number of areas including the following: (1) homogeneous arene hydrogenation catalysts, (2) trinuclear nickel cluster electrocatalysts for the reduction of carbon dioxide, (3) total synthesis of natural and unnatural products, (4) pharmaceutical applications of a CCD detector on a rotating anode, and (5) structural studies of zeolite inclusion compounds The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.